SBIR Phase II: Combustion Synthesis of Fullerenes

9314831 Wright This Phase II SBIR project will performm research related to the production of fullerenes by the combustion synthesis method involving benzene fueled flames burning under rich conditions and reduced pressures. Initial experiments have demonstrated the potential ability to produce commercial quantities of fullerenes by the flame synthesis process and have shown that the method can be more economical than the carbon arc process. These tests, with an un-optimized apparatus produced fullerenes for 10 to 20 per cent of the current cost of the arc process. The Phase II objective will be to develop an understanding of the synthesis process so that the rate of production and yield can be improved. The parameters to be optimized include temperature, pressure and equivalence ratio, using benzene as a fuel. The effects of fuel structure and scale-up will also be investigated. Concurrent with this applied study, a collaborative effort with the Colorado School of Mines, to develop a more fundamental understanding of the synthesis process will be undertaken.